Roger Revelle, The Scripps Institution, and American Oceanography, 1940-1965

The aim of this project is to undertake research for a book on the development of oceanography in the United States from 1930 through 1970. The project will focus on the pivotal role played by Roger Revelle and the Scripps Institution of Oceanography during those formative decades. Special attention will be given to the contributions made by Revelle and Scripps to the new oceanography of the deep sea and ocean floor, but will do so by examining the material culture and political economy within which such work was situated. The project will draw on collections in the National Archives, the National Academy of Sciences, and at the Scripps Institution. In turn, the project will contribute to recent scholarship on big science, on the formative influence of instrumentation and material culture in science,and on the relationship between science and the wider society.